High-Performance Decoding of Algebraic Codes Beyond their Packing Radii

Abstract
This research will improve the decoding of error-control codes, in
particular, Reed-Solomon codes, which are essential in most advanced modern
communication and storage systems, ranging from deep space communication to
optical and magnetic storage systems, such as the compact disk and CD-ROM.
By developing decoders that operate at lower signal to noise ratios, this
research will allow the recovery of data and records that currently are
unreadable.
This research will develop an efficient soft decoding algorithm that
will significantly outperform GMD-based decoding algorithms. The algorithm
is based on Sudan's list decoding technique that produces a list of
tentative codewords and it shows a number of very interesting features.
Among the most intriguing characteristics of the algorithm is a complexity
and performance that can be traded freely within certain fundamental
limits. Hence, the coding gain provided by the Reed-Solomon code can be
traded on the fly for complexity in any application with the maximal
list size changing accordingly.